MRI: Acquisition of an ICP-MS and an IC by UMBC for Use in Environmental and Human Health Research at UMBC and Howard University

Reed
0521056
The proposed acquisition represents a multi-institutional, multidisciplinary effort. Fourteen faculty and 5 research professors/senior scientists in 8 departments, 4 research centers, and 2 government agencies would utilize the instrumentation. Four post-doctoral research associates, 27 graduate students, and over 38 undergraduate students would benefit from research training in use of the equipment. It is expected that as the collaborative effort between the two universities flourishes, the number of faculty and students involved will grow significantly. Both HU and UMBC are committed to recruiting underrepresented groups and female into their science and engineering programs. HU is a historically Black private university; 86%of its student population is African American. A major focus at both UMBC and HU is bringing the research experience to the undergraduate student especially female and minority students.